Supporting Success for Low Income Computer Education Students

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at William Rainey Harper College (Harper), a Hispanic-Serving Institution in the northwest suburbs of Chicago. Over its 6-year duration, this project will fund scholarships to approximately 40 unique full-time and part-time students who are pursuing associate’s degrees in computer science and computer information systems. In addition to the scholarships, this project will include wraparound support and academic activities that reinforce student learning. These include building robots with other scholarship recipients, attending programming competitions, career overviews, and faculty mentoring. With the additional support and activities, Harper aims to increase the scholarship recipients' success rates through higher grades, increased graduation, and increased transfer rates to four-year institutions. The project includes evaluation of the success of these activities to determine if other students and academic departments could benefit from them.

The overall goal of this project is to increase STEM degree completion of low-income, high-achieving undergraduates with demonstrated financial need. By expanding opportunities for low-income students in Computer Science and Computer Information Systems, Harper seeks to improve the student outcomes for the scholarship recipients through financial support and co-curricular activities. Scholarships will be awarded to four cohorts of ten low-income students. Recruitment pipelines will be developed at local high schools to encourage applications from students interested in pursuing careers in these fields. Co-curricular activities are also integrated into the program to provide academic, social, and emotional support to students. These activities include, but are not limited to, career overviews, transfer training, programming competitions, robotics kits, and faculty mentoring. The effectiveness of the activities will be determined based on the student outcomes of the scholarship cohorts compared against other student populations at the college and through annual surveys. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of low-income academically talented students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.